2022 Oceanographic Instrumentation R/V Atlantic Explorer

A request is made to fund Oceanographic Instrumentation on R/V Atlantic Explorer, a 168’ general purpose research vessel owned and operated by Bermuda Institute of Ocean Science (BIOS) as part of the United States Academic Research Fleet (ARF). BIOS is a U.S. 501 (c) 3 and 509 (a) not-for-profit research and educational institution incorporated in the state of New York, and geographically located on the Island of Bermuda. The mission of the ship is to support funded science research throughout the Central Atlantic but specifically work in support of the Bermuda Atlantic Time-series (BATS) program.

With this proposal, BIOS provides technical descriptions and rationale for the acquisition of the following Instrumentation:

1) LNP20 - Liquid Nitrogen Plant $70,880
2) WindSonic - Option 2, 2 x Multifunctional TFT Displays $5,432
3) SBE 32 Pylon, SBE43, SBE 38. $34,871
4) WET Labs C-Star Transmissometer (CST-25-PR), Flow Tube $7,446
5) Teledyne RDI Sentinel V100 300 Khz Real-Time ADCP $31,001
6) 2 x MXO-4-Subconn-BIOS Rotocon Rotary Electrical Connectors $4,800
7) Dragonfish, various cables and dummys $5,364
8) 2 x Peplink Balance 580 Mid-sized Business Router $17,350
$177,144
IDC $31,526
$208,670

Broader Impacts

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.